Molecular Characterization of the 12 Desaturase

We have discovered a novel delta-12 desaturase and have begun the biochemical characterization of this enzyme that places the second double bond in the essential fatty acid linoleic acid. Vertebrates require the 18:2(n-6) acid in their diet, where it becomes a structural component of membranes and is a precursor for eicosanoids. Until recently, all animals, including insects, were considered unable to synthesize linoleic acid. Only plants, protozoa and some fungi readily synthesize the fatty acid. Studies in our laboratory demonstrated, however, that a number of insect species do possess a delta-12 desaturase and are able to produce linoleic acid. The discovery of the desaturase in insects presents an opportunity to examine the evolution of a key enzyme in the lipid biosynthetic pathway. One of the long term goals of our research is to examine the delta-12 desaturase in different species, and to determine if the process of delta-12 desaturation is a primitive metabolic activity, subsequently lost by most animals, or whether possession of this enzyme reflects an example of convergent evolution. A second goal is to examine the regulation of desaturase expression at the transcriptional and translational level. Studies are described in the present proposal to clone the enzyme from two representative insect species. Once the gene coding for the enzyme in insects is isolated, future experiments designed to answer fundamental questions about the evolution and regulation of this key enzyme can begin. %%% Linoleic acid is a type of lipid, or fat, that is required in the walls of animal cells. The lipid molecule is also required in animals for the synthesis of eicosanoids, which operate in intracellular communication. Originally it was believed that linoleic acid was only synthesized by plants, protozoa and certain fungi, and that animals had to ingest the lipid molecule in their diet. However, a key enzyme in the synthesis of linoleic acid, the delta-12 desaturase, was recently found by this laboratory in insects. This discovery provides an opportunity to learn more about the evolutionary history of the linoleic acid synthetic pathway. Could it be an ancient pathway lost during the evolution of the animal cell, or is it a property that has been acquired more recently by the insects. Experiments will be undertaken, first to clone and sequence the insect delta-12 desaturase gene(s), and then to study the synthetic regulation of the protein.